Collaborative Research: Numerical Algorithms and Software for Solving Polynomial Systems with Parameters

In this collaborative project the investigators Sommese,
Wampler, and Verschelde construct and implement new algorithms to
numerically describe algebraic sets defined by systems of
parameterized polynomial equations. The scope of work goes
beyond conventional problems, where one seeks the solution set
when the parameters are given, to include the determination of
parameter sets that change the nature of solution components in a
specified manner. Of special interest are solution sets whose
dimension is exceptionally large. Problems such as these, e.g.,
the discovery and classification of overconstrained mechanisms,
can be reduced to computing the irreducible decomposition of
certain exceptional loci of polynomial systems with parameters.
This is then reduced to finding the numerical irreducible
decomposition of a finite number of associated polynomial
systems. As this leads to large systems, a new
equation-by-equation approach to solving polynomial systems is
developed. To tackle nontrivial problems, the algorithms is
implemented on parallel computers.

Solving a polynomial equation -- finding the roots of the
polynomial -- is an old problem that occurs over and over in more
complicated forms throughout science and engineering. In
applications involving mechanical design, finding the solution of
a system of polynomial equations is only one step in a larger
scheme: to arrive at better designs by describing how the set of
solutions of a polynomial system depends on parameters of the
system. This problem arises in design of industrial robots, for
example. The investigators develop new methods for describing
the solution sets of polynomial systems with parameters. The
methods have the potential to become a standard tool in the
design of robots and mechanisms. Furthermore, the methods
promise to have a wider impact on the research fields of
numerical analysis and computer algebra, especially in efforts
seeking to provide the scientific community with software to
solve mathematical problems. An important result of this work is
publicly available software based on these new methods, with
interfaces facilitating use by the wider community. By solving
some difficult polynomial systems that arise in science and
engineering, the team stimulates interest in these advanced
methods and provides illustration of their usage for the
nonspecialist. The project includes collaboration with and
training of students.